Idealizations and the Reliability of Dimensional Analysis

Science and engineering both benefit from a maximization of the realism of their analyses and associated computations. A major constraint on such realism is the need to achieve real computability. It is in part because of this need that idealizations and approximations get introduced in the first place into scientific and engineering analyses. Given the desirability of maximizing realism and minimizing idealization and approximation, dimensional analysis is a godsend because it serves as a surrogate for actual derivations. Hence, more realistic analyses can be used than would otherwise be possible. Unfortunately, dimensional analysis is not entirely a "something for nothing" procedure. There are significant and challenging problems connected with its application. Dr. Laymon, under this research grant, is investigating different variants of dimensional analysis for their various strengths and weaknesses. Since it is the case that idealizations and simplifications are also employed in dimensional analysis, he is also investigating how such idealizations and simplifications are justified and introduced.